Meeting on Research on Climate Changes of the Last 2000 Years in Monsoon Asia, to be held April 21-23, 1993, Taipei,Taiwan

This award supports the U.S. participation in a workshop to be held in Taipei/China to explore research on climate changes of the last 2000 years in monsoon Asia. The discussion focuses on the preparation and analysis of: (1) early instrumental and historical records (colonial and indigenous) and (2) high resolution proxy records of past climate, such as tree rings, laminated sediments, banded corals, ice cores from high alpine areas. The National Research council of Taipei/China has agreed to host the meeting under the auspices of the IGBP-Past Global Changes (PAGES).